Space Weather: Continous Measurements of Intense Subauroral Relativistic Electron Precipitation and Its Effects on the Ionosphere and Mesosphere

This research project will develop a technique for measuring the electron density enhancements due to precipitation of relativistic electrons from the outer radiation belts. VLF radio propagation effects will be used to determine the relative delays in propagation time between a number of different receiver sites. These variations in the delay time will then be related to the relativistic electron fluxes observed by satellites such as SAMPEX, UARS and POLAR. This technique would ultimately allow a network of receiver sites to monitor not only the space weather effects of precipitating relativistic electrons, but it would also be possible to infer the fluxes of relativistic electrons in the outer radiation belt.